Transnational Diffusion of Legal Concepts

9310007 RUGGIERO This project will examine the impact of European legal science on the modernizing processes of Latin America. Legal professionals and legal interpretations of scientific theories about human behavior played a key role in the shaping of Argentine history and society. Although Argentina was a post-colonial nation at this time, it remained part of Europe's "informal empire." Thus, Argentina's modernizing processes, as was true of much of Latin America, were greatly influenced by and intertwined with European models. The study focuses on Argentina to illuminate the complex intellectual and cultural relationship that existed between Latin America and Europe, and the broader international world and history that legal science shared. Its interdisciplinary approach will result in bringing together a variety of published works and and previously unstudied archival materials on legal science found in both Argentina and Europe to provide a deeper insight into how the transnational diffusion of scientific thought influenced lives and actions. This research will make an important contribution to our empirical knowledge and theoretical understanding of transnational processes in the relationship between law and society. The investigator will examine three main sources: the dossiers of criminal court cases, the archival records of institutions of detention, and published legal treatises. The field research will be conducted in Buenos Aires, London, Paris, Rome and Bologna. The investigator will produce a monograph on law and society in nineteenth century Argentina and a collection of primary texts, translated and edited, which document legal science in this period. ***